SGER: The Effects of Acid Deposition on Soil Physical Properties

The objective of this research is to examine the effect of major ion constituents arising from acid deposition on soil structural properties. Acid deposition effects the composition of the soil solution and the migration of constituents through the soil. Recognizing that the chemistry and mineralogy of soils are transformed by acid deposition, it is postulated that acidification alters physical properties of soils including the behavior of cementing agents perhaps even in well buffered soils The effects of acid deposition on soil morphology and structure will be examined in two kinds of laboratory experiments. Prolonged leaching of different soils in long columns, and leaching of soils contained in shallower pans subjected to different treatments, including wetting and drying. For controlled experiments, two kinds of cement, carbonated and iron-aluminum oxides will be used in mixed natural and artificial soils. In evaluating the importance of selected cementing agents to soil structure, physical properties of the soil including hydraulic conductivity, cohesion and aggregate stability will be examined by comparing acid and control treatments under different buffering conditions. To the extent possible, non-destructive X-ray, gamma ray or CT-scan observations of the internal structure of the soil will be made to relate changes in internal structure to measured physical properties. Because soil relates to soil chemistry and hydrologic processes, understanding the interrelation among them should improve our ability to predict how different environments respond to acid deposition.